SHF: Small: Tackling Mapping and Scheduling Problems for Quantum Program Compilation

Quantum computing has the potential of enabling the next revolution in
computing. It can quickly solve problems that no classical computer could solve
in any feasible amount of time. Recently, the impressive advances in
quantum hardware have brought quantum computing from theoretical curiosity to
technical reality. However, there is a significant gap
between the theory of quantum algorithms and the realization of the algorithms
on physical devices. To bridge this gap, this proposal focuses on providing a
compiler framework for translating high-level algorithm specifications to
low-level hardware-compliant code. It enables programmers to take advantage of quantum
computers without having to obtain significant domain expertise in the low-level
hardware details.

In particular, this proposal focuses on the mapping and scheduling problems in
the compilation process for superconducting quantum computers. Superconducting
technology, as the leading technology for quantum hardware implementation, has
multiple types of constraints that prevent the realization of the full potential of
theoretical quantum algorithms. The mapping and scheduling process deals with
the practical constraints of superconducting qubits, and are the most
challenging problems during quantum program translation. This
proposal formally addresses the mapping/scheduling problems and models them as
graph-theoretic/AI problems. It not only advances the state of the art in the
field of quantum program compilation, but also pushes the boundary of the
traditional graph-theoretic and AI fields by linking them with unique challenges
in quantum compilers. Ultimately it spurs the productivity of quantum
programmers and unleashes the massive computing power of quantum computing
that will fuel the technical and economical innovations in society.